Collaborative Research: High-frequency, High-power Amplifier Based on Distributed Coupling of GaN HEMTs Through a SiC Substrate-integrated Waveguide

Abstract
Nontechnical
High-frequency, high-power sources are critical to exploiting the electromagnetic spectrum. The project may enable the next generation of millimeter-wave electronics with unprecedented bandwidth and power, while minimizing their size, weight, power consumption, cost, and failure rate. The methodologies developed to design, integrate, and fabricate high-power sources above 110 GHz, and to characterize these devices in terms of electromagnetic coupling, millimeter-wave performance, and thermal metrology can be used in the future to further improve the bandwidth and power of monolithically integrated power amplifiers to cover not only the entire millimeter-wave frequency range, but also terahertz frequencies that are not widely exploited. The substrate-integrated waveguide (SIW) platform may enable other electronic components such as high-quality filters and antennas to be monolithically integrated on a single chip, which has been difficult with conventional integrated circuits. The project directly impacts Future of Work by facilitating ubiquitous wireless communications, smart man-machine interfaces, and Internet of Things (IoT). It is estimated that wireless communications currently cover approximately 60% of the Earth surface, making Internet accessible to only about half of the world's population. 6G wireless communications enabled by millimeter-wave sources that are small, light, powerful, low cost, and reliable can extend the coverage to 100% of the Earth surface, making Internet accessible to everyone.

Technical
Based on an ultra-low-loss SiC SIW, a novel traveling-wave amplifier (TWA) is used to combine high-electron-mobility transistors (HEMTs) in a distributed manner for overcoming the power combining and impedance matching challenges of conventional monolithic millimeter-wave integrated circuits. Distributed and synchronous coupling between a quasi-transverse-electromagnetic wave on a grounded coplanar waveguide and a transverse-electric wave on an SIW is new, as is monolithic integration of SIW with transistors. This approach takes advantage of high-quality GaN grown epitaxially on SiC to achieve high-frequency, high-power performance through monolithic integration. This monolithic integration allows unprecedented precision and field strength in a distributed geometry, which is impossible to realize with conventional split-block machined parts or hybrid integration on a printed circuit board. This provides a path to high-frequency circuits with power and efficiency performance that is not otherwise attainable. As a proof-of-concept test vehicle, TWAs capable of 1-W output power at the D band (110-170 GHz) are designed, fabricated, and characterized. If successful, similar approaches can be used to generate higher powers at higher frequencies, or be implemented in other semiconductor technologies.